Support for Poster Session at the Gordon Conference on "Membranes: Materials and Processes"

CTS-9213304 Gordon Research Conferences John L. Anderson ABSTRACT This award provides support to help cover the costs associated with graduate student participation in the 1993 Gordon Research Conference on "Membranes: Materials and Processes". Topics range from pragmatic concerns with sessions on "Membrane Formation and Characterization" and "Membrane Separations" to frontiers in the field in "Unconventional Applications" and "Emerging Processes." Membrane-based methods offer great promise in improving the economy and effectiveness of techniques available for many industrially and environmentally important e costs as $ / 4 R T 2 4 ! ! ! F separations. J ! ! ! ! ! 4 4 ( Times New Roman Symbol & Arial @ 1 t $ / " h B Eg EM E 1 P { 1 Nichelle Coward Nichelle Coward